Quantum Chaos and Electromagnetic Chaos

The goal of this project is to understand the influence of classical dynamics on wave or quantum-mechanical properties by studying the response of atomic and condensed matter systems to microwave cavities and scattering geometries.